Student Participation Grant for National Manufacturing Conferences: 2012 ASME MSEC and SME NAMRC 40; University of Notre Dame, South Bend, Indiana; June 4-8, 2012

The purpose of this award is to provide funding to enable 83 undergraduate and graduate students to attend the 2012 joint conference of the American Society of Mechanical Engineers International Manufacturing Science and Engineering Conference and the Society of Manufacturing Engineers North American Manufacturing Research Conference. The attending students will participate in the conference by giving technical papers, participating in a poster session to display their research, and taking part in a design competition. The conference will be held June 4-8, 2012, at the University of Notre Dame in South Bend, Indiana.

The students who attend this conference will have a chance to see the latest work in their respective fields and to talk to the investigators directly. This will both give them a better perspective on the world of manufacturing and better prepare them to complete their thesis research. There is also an international aspect to the conference, enabling the students to become more internationally oriented. The benefits to the nation in the long term will include a better educated manufacturing engineering workforce.